Complexity and Robustness in Quantum and Biomolecular Information Processing Systems

This is an interdisciplinary project of theoretical research on design of quantum and biomolecular information processing systems. Specifically, the rate at which increases in the size/complexity of an information processing system can lead to improvements in robustness against environmental perturbations and systematic implementation errors are being investigated, starting with utilization of model reduction methods from control theory to develop general methods for scrutinizing the robustness of large but finite quantum and biomolecular systems and proceeding to detailed analyses of the efficiency of various known error-correction schemes. The overall goal is to be able to elucidate fundamental limits on the degree of redundancy required to achieve a given level of robustness. An integral part of this research is development of a new course on multi-scale design of information processing systems.